Computerization Across the Upper Level Mathematics Curriculum

A computer lab/classroom in which all students in all appropriate upper-level mathematics courses at Franklin College are being provided with daily computer access, with the software program, Mathematica, providing a common thread throughout these courses. The development of curriculum materials for the project has already been funded through a Curriculum Development Grant from the Lilly Endowment, Inc. This program, based on incorporating the principles of discovery learning and collaborative learning into the daily classroom activities, has been built by starting with the introduction of a laboratory component into the freshman calculus sequence, continuing with the implementation of computer-based activities into many upper-level courses. The equipment provided allows the program to develop a coherent overall structure so that it can provide a model of program integration for other colleges to follow.